Conference: XXXI Southern California Geometric Analysis Seminar (SCGAS)

This award will support the 31st Southern California Geometric Analysis Seminar (SCGAS) to take place at UC San Diego on April 4-5, 2026. The SCGAS is an annual two-day conference that rotates between the University of California - Irvine and the University of California - San Diego. It will feature 7 lectures by world leading experts in Geometric Analysis and its applications. A major goal of the meeting will be to promote interactions among members of the southern California mathematics community and, more broadly, the American mathematical community working in the field of Geometric Analysis and related areas.

Geometric Analysis is a central area of modern mathematics, with far reaching connections to Analysis, Geometry, Topology and Physics. Using analysis as its main tool with differential geometry, topology, and algebraic geometry as foundations, geometric analysis has solved a multitude of problems in global geometry, topology, several complex variables and mathematical physics. Over the years the SCGAS has successfully contributed to the dissemination of these problems and to their discussion, by inviting the leading experts in the field and by stimulating interactions among the participants. As the success of the first thirty meetings have demonstrated, the SCGAS conference has now become an important and anticipated event for the southern California region and has also attracted a substantial number of participants from the rest of the country each year. The website of the 31st Southern California Geometric Analysis Seminar may be found at https://sites.google.com/ucsd.edu/lucaspolaor/xxxi-scgas?authuser=0